NYI: Constraint-Based Program Analysis

In this project the work is focused on the design and implementation of advanced set constraint based program analysis algorithms, and their application to program optimization for a wide variety of programming languages. The basic theory, key algorithms, implementation techniques, and applications of the areas are simultaneously explored. Within the teaching plan, the constraint-based program analysis system is further developed and disseminated in support of the graduate programs. Work at the undergraduate level focuses on preparing students to work in the software industry.